Haptic Texture Perception and Rendering for Personal Robotics

The proposed work focuses on human-robot interaction, namely on the robot physically sensing the human hand. Specifically, the PIs will study the microstructure (texture) of the contact surfaces between a robot and a human hand, to infer the perceptual dimensionality of haptic texture sensing (perceptual model), and establish the mapping of relevant spaces. Methods for producing intuitive and efficient synthetic textures will be investigated. Rendering algorithms will be developed for synthesizing textures with desired perceptual qualities. The work is expected to contribute to various areas of haptic perception, texture studies, and multimodal rendering of information.